Seismic/Wind Masonry Building Design Handbook

Like some other national regions, communities in the Southeastern United States face a significant seismic risk without sufficient earthquake engineering technology base for mitigation. Prudent building practices and code standards are impeded by this technology inadequacy. This shortcoming is particularly important in South Carolina and other southeastern states due to the companion natural hazards of high winds. Masonry structures are common and most vulnerable to both of these natural hazards. Masonry building design practices often do not incorporate state-of-the-art engineering technology and, in most cases, established building code standards regarding seismic and wind forces. This is due to inadequacies in the engineering technology base as described above and a long term disregard of the serious eastern earthquake threat. Relevant masonry engineering procedures, data and experience are available to remedy this technical shortfall. However, the sources are somewhat fragmented and widespread. Consolidated engineering guidelines are necessary for the multihazards design of masonry structures. This project will produce an engineering design handbook for unreinforced and reinforced masonry structures to withstand the integrated effects of earthquakes and high winds. The handbook will feature provision of the new earthquake and wind provisions of the 1988 Standard Building Code which apply to the South and Southeastern United States. The handbook will focus on the threats, building types and construction practices of the southeast region, and would be of use nationwide. It will provide integrated design guidelines formed through a survey and consolidating analysis of existing design technologies and methodologies, including those recently developed, involving anchorages, diaphragms, existing unreinforced masonry buildings, mixed construction (prefab steel frame with masonry walls) and potential liquefaction damage. The guidelines will be presented through specific detailed design applications to building types typical of construction in the southeast region.